CDI-Type I: Automated Documentation and Illustration of Material Culture through the Collaborative Algorithmic Rendering Engine (CARE)

The ability of computers to unify visual information from multiple imaging
modes into comprehensible illustrations will revolutionize the ability of
scientists, engineers, and humanities scholars to gain and communicate
knowledge about the visual world. Achieving this goal, however, will
require a joint focus on developing novel shape and image analysis methods,
and designing collaborative user interfaces that allow multiple domain
experts and illustrators to bring together their expertise. The
Collaborative Algorithmic Rendering Engine (CARE) will be an open-source tool
for extracting and merging visual details available only under certain
lighting conditions, certain wavelengths, or certain imaging modalities.
By focusing on minimal user effort, cross-site collaborative visualization
design, and integrated archiving and process history (provenance) tracking,
the CARE tool is specifically designed to remove existing obstacles to
widespread adoption of digital tools for visual analysis and communication.

As part of the project, investigators are developing novel image analysis
techniques that build upon existing technologies such as Reflectance
Transformation Imaging (RTI) and non-photorealistic rendering using images
with normals (RGBN NPR), which have already received enormous interest
within the cultural heritage community. The research includes methods for:
(1) analyzing the collection of images to decompose them into "maps" of
color, orientation, and material at each pixel; (2) performing an arbitrary
sequence or combination of image-processing operations on some or all of
the maps separately; and (3) combining several maps into the final
illustration. The whole process is driven by (4) a user interface designed
for interactive response and including special features that enable
collaborative illustration design.

The project involves a close collaboration between a university-based research
group, responsible for development of new technologies, and a non-profit
company with a demonstrated track record of working with museums and
archaeological sites to deploy novel imaging and computational photography
systems. This joint development will ensure that the underlying
technologies will have immediate high impact in the field: cultural
heritage scholars and scientists will be able to generate high-quality,
comprehensible illustrations for scientific papers and textbooks, with control
over selective emphasis, contrast, attention, and abstraction, at lower
cost and greater flexibility than generating such figures by hand. The subject
matter of art history also offers the unique opportunity to stimulate the
interest of students who would not normally take courses in computer
science, broadening the class of students exposed to the tools and capabilities
of computing.